NetSE: Small: Game Theoretic Coverage and Connectivity Services

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Robotic Sensor Networks (RSNs) are finding increasing use in critical
applications such as surveillance, environmental monitoring, emergency
response and search-and-rescue. With recent advances in embedded
technologies, devices that can be used as RSN units are becoming available
for everyday use.

Intellectual Merit:
This project focuses on pursuit-evasion games where one or more
pursuers tries to "capture" an evader who, in turn, tries to avoid
capture. Robust, provably correct solutions to many RSN
tasks (such as coverage and connectivity) can be obtained by modeling them as pursuit-evasion games.

Existing solutions to pursuit-evasion games usually assume that
(i) all players can observe each other at all times and (ii) there is
a centralized authority that coordinates all pursuers. Hence, such
solutions are not applicable for modeling RSN applications where the
network faces severe sensing and communication limitations. The
primary goals of the proposed work are to understand the effect of these
limitations on the outcome of the game, and to design strategies to
overcome them.

Broader Impacts:
Sensing and actuation are expected to play significant roles in the
evolution of information technology and the Internet. This
research will contribute to this evolution in two major ways. First,
it will deliver algorithms, tools and techniques to address
communication, sensing and actuation issues simultaneously. Second,
it will help scientists and engineers participating in this development acquire a broad
range of skills in areas such as algorithms, perception, robotics and communications. This
will be achieved through outreach programs and by incorporating this research in PI's courses.